Macromolecular Design at Nanoparticulate Interfaces Using Functional Polymers and Emissive Nanocrystals

Professor Emrick at the University of Massachusetts Amherst will work to create new chemical structures by combining extremely small particles, of 1-100 nanometer diameter, with synthetic polymers. By designing polymers to interact productively with semiconductor nanoparticle surfaces, polymer-particle combinations will be produced that are brightly emissive and long-lasting, and which efficiently harvest light and energy. Overall, the research in this project will lay the groundwork for potential impacts in advanced manufacturing of microelectronics and semiconductors, where improvements in efficiency and chemical integration are key for producing next-generation electronic and optoelectronic devices and displays. The broader impacts of the project will facilitate student education and interactions with industrial scientists, altogether creating a vibrant research culture with mentoring of students through their Ph.D. experience and into productive careers that propel the U.S. economy and scientific competitiveness.

From a technical perspective, this work will pursue new directions that deepen the fundamental understanding of nanocomposite structures and propel student education in areas of critical importance to U.S. science and technology. The project aims are designed to advance the state-of-the-art in surface functionalization of semiconductor nanoparticles with designer polymer ligands, with focus on: 1) the synthesis of geometrically well-defined zwitterions as pendant groups on polymers that hold promise for generating precise modes of nanocrystal-ligand coordination; 2) optoelectronically active ligands that collectively exploit the energetic framework of perovskite nanocrystals with ligands exhibiting aggregation-induced emission; and 3) the discovery and development of photohalide generators that yield nanocomposite constructs with patterned photoluminescence emission on the sub-micron and sub-100 nm length scale. As research progress proceeds, translational opportunities will be sought through dissemination of results to industrial visitors who seek collaboration, new concepts and chemistries, and technology transfer opportunities.